International Travel to Attend the 20th International Con- ference on Coastal Engineering, Taipei, Taiwan, November 1986

Travel support is provided for the principal investigator to participate in an important international meeting, the 20th International Conference on Coastal Engineering. He will also conduct a site visit, and present research seminars at the Kyoto University, Japan. The opportunities for technical exchange are very good.